Software Reverse Engineering

This research involves developing a translator from procedural programming languages (starting with Fortran) into the equational specification language-MODEL. This is called "Software Reverse Engineering" (SRE). It is coupled with the existing MODEL system that translates equational specifications in MODEL into highly efficient programs in PL/1, C or Ada (generation of programs in Fortran is in development). Together these two systems provide an automated conversion path from old to new operational environments. The significance of this project is also in use of the MODEL equational language specifications to achieve much easier understanding of programs. This aspect is very important in attaining maintenance, improvements, higher reliability and better efficiency of programs. Another important aspect is use of SRE for conversion to parallel computers. The proposed Phase I work consists of design of algorithms and testing of the concept through examples.